CAREER: Development of Unmanned Ground Vehicles for Assessing the Health of Secluded Ecosystems (ECHO)

Part I: Non-technical description:
Understanding human-induced changes on biodiversity is one of the most important scientific challenges we face today. This is especially true for marine environments that are home to much of the world’s biomass and biodiversity. A particularly effective approach to investigate the effects of climate change on marine ecosystems is to monitor top-predator populations such as seabirds or marine mammals. The food web in the Southern Ocean in relatively small and involves few species, therefore climate-induced variations at the prey species level directly affect the predator species level. For example, seabirds, like penguins, are ideal to detect and study these ecosystem changes. This study combines traditional methods to study emperor penguin population dynamics with the use of an autonomous vehicle to conduct the population dynamic measurements with less impact and higher accuracy. This project leverages an existing long-term emperor penguin observatory at the Atka Bay colony which hosts penguins living in the Weddell sea and the Atlantic sector of the Southern Ocean. The study will kickstart the collection of a multi-decadal data set in an area of the Southern Ocean that has been understudied. It will fill important gaps in ecological knowledge on the state of the Emperor penguin and its adaptive capabilities within a changing world. Finally, the project supports NSF goals of training new generations of scientists through collaborative training of undergraduate students and the creation of a new class on robotics for ecosystem study. Emperor penguins are an iconic species that few people will ever see in the wild. Through the technology developed in this proposal, the public can be immersed in real-time into the life of an emperor penguin colony. Public outreach will be achieved by showcasing real-time video and audio footage of emperor penguins from the field as social media science and engineering-themed educational materials.

Part II: Technical description:
Polar ecosystems currently experience significant impacts due to global changes. Measurable negative effects on polar wildlife have already occurred, such as population decreases of numerous seabird species, including the complete loss of colonies of one of the most emblematic species of the Antarctic, the emperor penguin. These existing impacts on polar species are alarming, especially because many polar species still remain poorly studied due to technical and logistical challenges imposed by the harsh environment and extreme remoteness. Developing technologies and tools for monitoring such wildlife populations is, therefore, a matter of urgency.
This project aims to help close major knowledge gaps about the emperor penguin, in particular about their adaptive capability to a changing environment, by the development of next-generation tools to remotely study entire colonies. Specifically, the main goal of this project is to implement and test an autonomous unmanned ground vehicle equipped with Radio-frequency identification (RFID) antennas and wireless mesh communication data-loggers to: 1) identify RFID-tagged emperor penguins during breeding to studying population dynamics without human presence; and 2) receive Global Positioning System-Time Domain Reflectometry (GPS-TDR) datasets from Very High Frequency VHF-GPS-TDR data-loggers without human presence to study animal behavior and distribution at sea. The autonomous vehicles navigation through the colony will be aided by an existing remote penguin observatory (SPOT). Properly implemented, this technology can be used to study of the life history of individual penguins, and therefore gather data for behavioral and population dynamic studies. The new data will contribute to intelligent establishment of marine protected areas in Antarctica. The education objectives of this CAREER project are designed to increase the interest in a STEM education for the next generation of scientists by combining the charisma of the emperor penguin with robotics research. Within this project, a new class on ecosystem robotics will be developed and taught, Robotics boot-camps will allow undergraduate students to remotely participate in Antarctic field trips, and an annual curriculum will be developed that allows K-12 students to follow the life of the emperor penguin during the breeding cycle, powered by real-time data obtained using the unmanned ground vehicle as well as the existing emperor penguin observatory.